21st Century Assessment: Using Technology to Support Student Science Assessment

981889
QUELLMALZ

This planning project will:

1. Identify an initial set of technology tools that represent a range of potential assessment functions (e.g., planning, investigating, analyzing and interpreting, communicating and presenting, and monitoring, evaluation, reflection and extention.
2. Develop a preliminary taxonomy of technology-based tools that indicate the science inquiry processes they elicit and the types of assessment information they could provide.
3. Illustrate that multiple tools may be combined by designing a prototype assessment comprised of three to five science technology tools.
4. Plan further efforts towards building a tool kit of technology-supported science assessment tools and prototypes.

Products from this project will be:

1. A draft conceptual framework.
2. A description of the design process.
3. An assessment prototype design of a middle school, inquiry-based science investigation that integrates technology tools from several sources.
4. Further exploration of the proposed partnerships.